Support Workshop: Sensors in Electric Power and Semiconductor Manufacturing Applications (CPO-9216105) Task Order #50

9403781 Linsky This task order #50 is to provide Administrative Support for the Workshop on Sensors in Electric Power December 20-21, 1993. ***